Mathematical Learning via Architectural Design and Modeling Using E-Rebuild

This project will explore the learning of mathematics through architectural tasks in an online simulation game, E-Rebuild. There is a need to connect mathematics to real world contexts and problems. In the game-based architectural simulation, students will be able to complete tasks such as building and constructing structures while using mathematics and problem solving. The learning platform will be flexible so teachers can customize tasks for their students. The project will examine how to collect data about students' learning from data generated as they play the game. The project will explore how students learn mathematics using the simulation and how the simulation can be included in middle school mathematics learning. The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

The project includes two major research questions. First, how will the design of a scalable game-based, design-centered learning platform promote coordination and application of math representation for problem solving? Second, how and under what implementation circumstances will using a scalable architectural game-based learning platform improve students multi-stranded mathematical proficiency (i.e., understanding, problem solving and positive disposition)? A key feature of the project is stealth-assessment or data collected and logged as students use the architectural simulation activities that can be used to understand their mathematics learning. The project uses a design-based research approach to gather data from students and teachers that will inform the design of the learning environment. The qualitative and quantitative data will also be used to understand what students are learning as they play the game and how teachers are interacting with their students. The project will include a mixed methods study to compare classrooms using the architectural activities to classrooms that are using typical activities.